Mathematical Sciences: Geometry and Topology under Ricci Curvature Bounds

9409166 Wei The investigator study the effect of curvature bounds on the local geometric structure and global topology of a Riemannian manifold. In the compact case, this includes the question of the structure of the fundamental group of a near elliptic manifold. For open manifolds, the investigator are concentrating on the structures of manifolds with nonnegative Ricci curvature, especially the question when they will have finite topological type. ***